Grand Challenges for Engineering

The National Academy of Engineering (NAE) will convene a committee of leading thinkers
from such areas as technology, science, business, politics, and entertainment. They will create a
ranked list of the grand challenges and opportunities for engineering facing those born at the
dawn of this new century. This "blue-ribbon" committee will then look at engineering research
and innovation either already being explored or which should be considered that might help
address aspects of each challenge.

Input from many sources will be considered, including the NAE membership and foreign
associates, engineering societies worldwide, international Frontiers of Engineering attendees,
engineering students, MacArthur grantees, Intel Science Search winners, NSF Young
Investigator awardees, and the broader public. The committee will be a diverse, balanced, highprofile,
international group with both technical expertise and vision. Key, and unique, to this
project will be a focus on public outreach. Not only will public input be sought during the
deliberative process, but results will be shared through a major event in Washington, D.C.,
collaboration with one or more major media outlets, and a web site designed with students in
mind.

The main goals of this project are: (1) to improve public understanding of how engineering can
address current and emerging societal challenges; (2) to excite young people about their potential
to contribute to the world's grand challenges through an engineering career; and (3) to uncover
examples of engineering research opportunities related to the challenges.
Intellectual Merit

Public outreach is a primary goal of this project. The public will be invited to provide input
about grand challenges to society that engineering and technology might address in the future.
By actively thinking about large-scale enduring challenges and how engineering and technology
might meet them, the public will better understand the process of engineering and what issues
engineers can address. Outcomes will show, in an engaging way, how engineering is helping
people throughout the world. It will illustrate how even some of the most esoteric concepts may
prove to have huge impacts on practical issues ranging from global politics to our own bodies.

Broader Impact

Not only will this project contribute to technological literacy by illustrating the impact future
technologies may have on our lives, but it will provide a better understand of the engineering
profession. It will show the process of developing new technologies and the trade-offs involved.
This project will engage people of all ages in a discussion of technological choices, benefits,
risks, and values. It will also give the public a clear picture of engineers' roles in society.
By using high-profile people to generate specific challenges and opportunities, this project will
excite young people about contributing to society something recent surveys have said they
want to do. Girls, in particular, are interested in choosing careers that help people. This project
will vividly illustrate how engineering can accomplish those goals.